Energy-Aware Synthesis of Embedded Systems on Multiprocessor Platforms

Project Summary: Energy-aware Synthesis of Embedded Systems on
Multiprocessor Platforms

Sanjoy Baruah James H. Anderson

Two evident trends in the real-time embedded systems domain are (i)
the proliferation of multiprocessor platforms, and (ii) the
proliferation of applications for which energy consumption must be
minimized. In the years ahead, it is reasonable to expect these two
trends to converge: indeed, one major advantage of multiprocessor
implementations over uniprocessor ones is that the former tend to be
more energy-efficient. To date, however, the little work that has
been done on energy-aware multiprocessor designs has been limited to
relatively simple table-driven scheduling schemes; a precise
characterization of the energy savings realized by moving to a
multiprocessor implementation is not known.

These observations point to a significant need for research to be
conducted on the tradeoffs that exist when designing energy-aware
multiprocessor systems. This project proposes to fill this need by
developing and experimentally evaluating design methodologies and
scheduling algorithms that facilitate the synthesis of embedded
real-time systems upon multiprocessor platforms, with the primary goal
of minimizing energy consumption.

Broader impact. Based partially on the results of this project, two
new courses will be developed: an introductory graduate course on
embedded systems, and a graduate seminar on multiprocessor embedded
designs. The introductory embedded-systems course will be created as
a follow-on to current real-time systems and advanced operating
systems courses. The seminar course on multiprocessor designs will be
a follow-on to the introductory course. A concerted effort will be
made to involve underrepresented groups in our research. Results from
the algorithmic research will be disseminated through publications.
Any software of general utility that results from this project will be
made publically available on the web.